Workshop on Nano and Micromechanics of Solids for Emerging Science and Technology, October 7-8, 1999, Palo Alto, California

Recent developments in science and technology have advanced capabilities to both fabricate and control material systems on the scale of nanometers. These developments, in turn, have brought problems of materials behavior on nanometer scale into the domain of engineering. The field of mechanics has an important role to play in bringing new ideas to practical fruition and in enabling the technologies to meet a range of societal needs. The branch of mechanics research in this emerging field can be termed "nano- and micro-mechanics of materials". It is timely for the mechanics community to focus its thinking on the underlying challenges and to establish an effective, reliable national program and infrastructure on nano- and micro-mechanics of materials.